Collaborative Research: BoCP-Design: Climate change alteration of soils functional biodiversity of the Paramos, Colombia

Páramos are high-altitude tundra ecosystems nested at the heart of the Andes mountains. These cold and humid environments are home to a multitude of plants, animals, and insects. Páramos are a critical water source for downstream urban centers, including Colombia's capital city, Bogota. Additionally, the Páramos soils contain substantial organic carbon reserves due to slow rates of organic matter decomposition. Beyond being a pool of carbon sequestered away from the atmosphere, this large reservoir of organic matter controls the soils’ hydraulic and fertility properties. The Páramos’ unique geographic location, at an elevation above 2,800 m above sea level, makes them highly vulnerable to the impacts of climate change. In fact, these ecosystems’ surface areas are projected to shrink by half within the next 50 years possibly causing loss of the essential services they provide. This project aims to characterize the microbial diversity in the Páramos soils in Colombia and investigate how climate change will affect microbes’ functions. The research is of high importance, considering that immediate and long-term changes in microbial metabolism could impact the ability of Páramos soils to store organic carbon and regulate downstream water flow. To study the cascading effect of climate change on Páramos ecosystems, this project will jumpstart collaborations among transdisciplinary experts that will integrate the research of below-ground microbial communities with above-ground vegetation functions. The project will also engage high school and undergraduate students that will work together to develop and deploy low-cost long-term soil monitoring data loggers in Chingaza National Natural Park, near the city of Bogota.

This project will address the critical need to disentangle the effect of moisture and temperature on the fate of organic carbon in Páramos soils while building a transdisciplinary team capable of expanding the scope of the research to an ecosystem level. The project includes establishing controlled soil mesocosms that will allow to independently vary moisture and temperature levels. Additionally, functions of the soil microbiome will be investigated using metagenomics and amplicon sequencing, and probes will be deployed to initiate long-term monitoring of the soil response to climate change in situ. This project will culminate in the organization of an international Páramos symposium that will set up priorities for future systems research. The symposium will bring together scientists from diverse fields to discuss the linkages between above-ground and below-ground ecosystem functions and plan future collaborations in predicting Páramos-wide effects of climate change.